SBIR PHASE II: Actively Controlled Chemical Mechanical Polishing Process

Tang 9704031 This Small Business Innovation Research Phase II project aims to improve the process uniformity of the chemical mechanical polishing (CMP) planarization process. The proposed work centers on real-time process optimizations based on real-time in-situ thickness mapping during CMP planarization. The ability to improve the process uniformity is crucial to semiconductor manufacturers. CMP is a key semiconductor planarization process, and is utilized to address microlithography depth of focus problems and multilevel metallization problems. The CMP process is presently utilized by most state-of-the-art semiconductor production lines for interlevel dielectric (ILD) and shallow trench isolation (STI) planarization. The ability to improve CMP process uniformity will directly benefit semiconductor production yields. p:\sbir\yhashimi\abstracts\9704031.doc